REU Site: Animal-like, Sensor-based Robot Motions: Learning from Nature

This Research Experience for Undergraduates (REU) Site is co-funded by the Department of Defense in partnership with the NSF REU program. This award provides support for an REU Site at Lehigh University. Ten rising sophomores (i.e. students that have completed the freshman year but have not started the sophomore year) will spend 12 weeks in the summer engaged in research in neuroscience and robotics. This unique interdisciplinary program will expose students majoring in mechanical engineering and students majoring in the biological sciences to fundamental concepts in both academic disciplines. It is anticipated that this program will impact the nations' need to increase the number of U.S. citizens and permanent residents prepared for research-related careers, in addition to impacting the need to increase the number of U.S. citizens from population groups underrepresented in science and engineering that are engaged in research-related careers.